Doctoral Dissertation Research in Political Science: Non-democratic Accountability--Experiments with Citizen Contacting in China

This project sheds new light on government accountability in a non-democratic state by conducting field experiments in the People's Republic of China. The Communist Party of China has established a durable single-party regime. In economic reform, however, it has expanded laws that mandate rights for Chinese citizens and has formed institutions to defend these rights when they are not implemented. It is clear that these forms of citizen-state interaction in China have grown. What remains little known is how much citizens get from such interactions.

This study assesses the efficacy of one form of citizen-state interaction in China: citizen requests for information on government services. First, it measures the implementation of legal reforms intended to improve government transparency to citizens. Second, this project uses experimental techniques to test whether citizens can improve government responsiveness by demonstrating knowledge about the law or central policy priorities. Third, by comparing the transparency practices of counties that receive requests with counties that do not, the project experimentally tests whether the very receipt of citizen information requests might incentivize more transparent government in the future.

The intellectual merit of this study lies in its substantive and methodological contributions to the study of governance in non-democracies. By estimating local compliance with a national transparency regulation, it produces a new quantitative measure of access to government information enjoyed by Chinese citizens nationwide. Its use of contacting techniques as experimental treatments provides novel evidence of the impact of citizens' legal and political knowledge in their dealings with government. By developing a methodology to evaluate accountability without reference to elections, this work suggests new opportunities to compare government accountability across countries with very different political regimes.

This project makes several broader contributions. Government transparency has been associated with good government outcomes across diverse political settings. By measuring local transparency and its correlates, this project will help guide ongoing policy experiments by Chinese research institutions and international organizations to improve government transparency. Moreover, the contacting techniques that comprise this project's experimental treatments map onto real strategies that people use when they approach government officials. By estimating their effects, this work can enhance understanding of everyday, ordinary, and yet quite important mechanisms of government responsiveness, even in non-democracies.